Partial Differential Equations and Variational Problems

The principal investigator would like to continue his work on partial
differential equations and variational problems. The first theme of
this project, and also of the research of the PI over the past several
years, is to study special sets associated to solutions to differential
equations and variational problems. The problems that the PI would
continue to work on include the geometric structure of level sets, in
particular the nodal sets and the singular sets. The study is partly
motivated by the desire to understand to what extent the solutions can
be described quantitatively by polynomials or by homogeneous solutions.
These problems have a close connection with other fields in mathematics,
including several complex variables and algebraic geometry. A new
research trend is the study of the relation between the growth of nodal
sets and the growth of solutions themselves. It is expected that they
are closely related to each other. The second theme of this project is
to study the isometric embedding of two-dimensional metrics in the three
dimensional Euclidean space, both locally and globally. In general, the
isometric embedding is based on the complicated Nash-Moser iteration,
which requires detailed discussions of the linearized equations. Moreover,
the global isometric embedding is expected to meet some topological
obstacles. Difficulties arise when the Gaussian curvature changes its
sign. Singular sets may appear even if the embedding exists.

The problems of the singular sets originate from the material science
and the control theory. Singular sets, as the name suggests, are those
sets where singularities occur. Precise definitions vary according to
problems where they arise. In reality it is impossible to eliminate
singular sets, the so-called "bad sets". An example is provided by
cracks in the building material. Hence one of the central tasks is to
investigate the conditions under which the singular sets can be
controlled and hence can be made small. Another application involves
the high-performance computing, in particular the image processing. One
problem is to recover the image from a distorted copy and the difference
is measured exactly by some singular sets. It is highly expected that
such sets should be small enough to be neglected. The problems stated
in the project are simplified mathematical models. It is the hope by
the investigator that the discussion of these mathematical problems
would improve the methods to control the singular sets in various
applications.